AGS-PRF: Profiling Drop Size Distributions across Multiple Remote Sensing Platforms

The rainfall observed at the surface reflects in-cloud processes that shape the distribution of droplet sizes and, in turn, influence precipitation accumulation. This project will use weather radar data combined with other instrumentation and modeling to improve understanding of how the drop size distribution varies with height. This research has the potential to improve forecasting of high-risk weather events such as flash flooding. The project also provides research training for an early career scientist, contributing to workforce development.

This research effort aims to address questions about the vertical profile of drop size distributions (DSD), including the role of the melting layer in modifying characteristics of the DSD. The High-Power Snow-Level Radar (HPSLR) is a frequency-modulated continuous wave (FMCW) S-band radar that was deployed in 2024 alongside a suite of other instrumentation in a testbed for an upcoming satellite mission. This project will compare the data quality of the HPSLR-derived DSDs versus other radars and ground-based measurements and then incorporate a drizzle mode and vertical velocity measurements to improve the DSD retrievals. The data will then be analyzed to investigate the impact of the melting layer depth, strength, and altitude on the resulting DSD and the effect of vertical velocities on the melting layer and the DSD characteristics.